SBIR Phase I: Microwave-Induced Non-Thermal Plasma for Volatile Organic Compound Emission Control

Emissions of hazardous air pollutants (HAP's), specifically volatile organic compounds
(VOC's), are an increasing concern because they are major contributors to the predominant
environmental problems facing us today such as: global warming, ozone depletion, and
photochemical smog.1-3 With the passage of the 1990 Clean Air Act Amendments (CAAA),
which require increased levels of control for specific organic compounds, the
understanding and significant development of technologies for controlling these waste
streams have been mandated. Responding to the need to decrease VOC emission from
different technological processes, we propose the development of an innovative method for
an effective, low cost destruction and removal of VOC's. Unlike other conventional
methods which burn VOC by raising the temperature of the contaminated gases, the proposed
method uses properties of non-thermal plasma to generate free radicals to oxidize the VOC
directly in the exhaust gas. The potential of the approach for VOC oxidation presented
here stems from the fact that free radicals react with VOC molecules in a way normally
associated with a very high temperature. The free radicals will be generated in the
contaminated gas. The proposed device will cause a minimal, if any, pressure drop in the
exhaust stream; moreover, its only energy requirement is the relatively low average power
supply to its magnetron. It is expected that this device will operate in a wide range of
temperatures, and will be maintenance free. The proposed project is expected to result
in the development of a new technology for removing undesirable VOC's from exhaust gases.
The proposed method can be conveniently combined with virtually any other pollution-control
measure. Due to the 'end-of-pipe' approach, only minor, if any, modifications in the operation
of the existing exhaust system and in the system itself will be required to accommodate the
new technique.